Ocean Sediment Composition Determined by Visible Light Spectra Synoptic and Time Series Applications

Abstract Using visible light reflectance spectra, ocean sediment cores can be analyzed rapidly for semi-quantitative determination of sediment composition. At present, four minerals (goethite, hematite, chlorite and smectite) and organic carbon contents have been derived from the spectra, and the present study will seek to expand the data processing techniques. Using these refined techniques, cores from the tropical Atlantic will be analyzed to see the relative influence of glacial climate on the Amazon Basin and on the extent and velocity of winds off the Sahara.